Assessment Communities of Teachers (ACT)

Abstract 93-53622 Diane Briars Assessment Communities of Teachers (ACT) The Assessment Communities of Teachers Project uses classroom assessment of students as a vehicle for professional development. The project supports the enhancement of classroom teachers in six urban districts - Dayton, Memphis, Milwaukee, Pittsburgh, San Diego, and San Francisco. The project will increase their knowledge of school mathematics and student learning through involvement in classroom assessment techniques. These cadres in each city will share experiences across the communities and implement teacher enhancement programs for their colleagues at the local level. The project runs for three years at an NSF funding of $2,842,463.